Mathematical Sciences: Symposium on Complex Analysis, June 2-7, 1991; Madison, Wisconsin

The field of several complex variables is a broad and active area of research, and the subject has connections with many other important areas of mathematics. In the past two decades especially, very rapid progress has been made on a large number of problems of the subject. Rather than survey the field as a whole, this Symposium will concentrate only on certain aspects, in particular, on the detailed study of the boundary behavior of holomorphic functions and mappings in domains in n-dimensional complex space, on the construction of smooth domains in complex space or complex manifolds which provide examples or counterexamples, and on the connection of complex analysis in several variables and harmonic analysis on nilpotent groups. This grant will partially fund a week-long Symposium on Complex Analysis to be held at the University of Wisconsin-Madison from June 2-7, 1991. In addition to the 15 invited hour lectures, there will be opportunity for shorter talks, seminars and more informal discussions. The Symposium will bring together leading researchers and graduate students in the area of several complex variables. The texts of the invited lectures, as well as other contributed papers will be refereed and then published as a collection, so the results of the Symposium will be available to the general mathematical community.